A Computerized Diode Array UV/VIS Spectrophotometer for Modernizing the Chemistry Program at Shepherd College

In recent years significant steps have been taken by Shepherd College to update the curriculum of its chemistry majors. These include the Computers in Science course required for graduation, the team teaching of Instrumental Analysis and the introduction of a Chemical Safety course. In this project a UV/Vis spectrometer was purchased. This instrument is used across the curriculum in Instrumental Analysis, Biochemical Techniques, Organic Chemistry, and Computers in the Chemical Science (for future teachers) course. In addition this new instrument has freed up the department's old instrument for loans to the local high schools extending the current successful program of lending out our old infrared spectrometer. The institution is matching the NSF grant with an equal amount of funds.